SciGirls TV - Planning Grant

Twin Cities Public Television is requesting a planning grant to support the development of a new television series called SciGirls and related educational materials, building off the success of SciGirls Outreach and DragonflyTV. The goal of the planning process is to design a television series that could inspire millions of girls across America to discover the excitement of science, technology, engineering and math. The proposed planning phase will include: audience research about the current TV viewing habits of "tween" girls (ages 8-13), meetings of science and education advisors, formative evaluation of sample video segments, development of a treatment and business plan for the series. Barbara Flagg of Multimedia Research will conduct the formative evaluation of the SciGirls TV short video with girls of the target audience in five locations across the country.